Geometry, Combinatorics and Algebraic Groups; June 3-5, 2004; Princeton, NJ

DMS-0346038
Langlands, Robert P.

Abstract

Title: Geometry, Combinatorics, and Algebraic Groups

This proposal concerns a three-day conference, "Geometry, Combinatorics and Algebraic
Groups" on the occasion of the sixtieth birthday of Robert MacPherson to be held during
the period of June 3, 4 and 5, 2004 at the Institute for Advanced Study in Princeton, New
Jersey. The organizing committee consists of Robert Langlands, Pierre Deligne and Mark
Goresky.

The objectives of the proposed conference are (1) to bring together scholars from a
variety of disciplines with a common interest in geometric techniques and (2) to describe
some of the recent achievements of younger mathematicians in MacPherson's school. It is
expected that the audience will consist of mathematicians from many different fields, and
the speakers have been requested to deliver survey talks designed to be accessible to such
a wide and varied audience. A substantial portion of the funding for this confernce will be directed
towards the support of graduate students and postdoctoral mathematicians. The lectures
are expected to be accessible to graduate students and postdoctoral scholars. The
participation of women, underrepresented minorities and persons with disabilities will be
encouraged.